Soil Strees-Strain Characteristics Using an Automated True Triaxial Testing Device

9452059 Penumadu An automated electro-pneumatic controlled true triaxial testing device with flexible boundaries enables students to investigate the importance of stress path and drainage conditions on the strength of soils. Two types of laboratory experiments that use this device have been developed. The first familiarizes students with concepts related to static transducer calibration, analog to digital conversion, signal conditioning, software and hardware gain and problems of aliasing. The second type deals with the isotropic and anisotropic consolidation and testing of soil samples using a predefined stress path. Stress and strain controlled static shear tests can be performed and essentially any stress path can be simulated through the data acquisition and control software. This laboratory capability shows the relevance of the various laboratory strength tests with actual field conditions using the same testing device, and illustrates the concepts related to electronic data acquisition and control. An important benefit is that the same device can be used to illustrate the drained and undrained stress-strain characteristics of both isotropic and Ko consolidated soil samples. The samples can be sheared under a predefined stress path and the observed pore pressure behavior (for undrained testing) can be compared. Soil testing programs are developed to examine the issues related to type of consolidation, stress path and the rate of loading.